Integrating Knowledge: A Model for Secondary Teacher Preparation

The goal of this project is to improve the preparation of secondary mathematics teachers through the implementation of an integrated teacher development model that deepens pre-service teachers' mathematical knowledge while integrating their knowledge of mathematics and pedagogy in a meaningful way. The model is based on how teachers develop and use their knowledge in the act of instruction. It draws upon current research in order to help teachers integrate their knowledge sets through the process of decision-making and reflection. This proposed model (demonstrated as a capstone course) and the discoveries made by the project could also lead to and inform the development of new teacher preparation curricula that can be disseminated to the wider education community.